Gas flows in Star Formation

Stars and planets form together out of clouds of gas. Planetary systems are common, yet it is still not understood where and when stars will form, how big they will grow, and what planets they will have around them. This research program will measure how the material that makes new stars flows into those stars under the influence of gravity. It will observe hundreds of different clouds, each at a different phase of stellar birth to show how that gas flow changes with time. The project will observe large clouds that are “reservoirs” of gas. It will observe the “rivers” of material that flows into small star systems. Finally, it will observe the individual solar systems that have disks of gas where planets form. At each stage, the project will track how much material is flowing and how fast. These observations will allow a better and more complete understanding of how star systems, big and small, are assembled. The project will train a graduate student, and it will build interactive visual “sky tours” to enable public engagement with modern astronomy.

Where do stars get their mass? This central question links galaxy-scale star formation to the stellar initial mass function. This program will analyze the ALMA Panta Rei Large Program (2025.1.00383.L), mapping 259 star-forming clumps to trace gas flows from parsec-scale clouds to 1000 AU cores, and link it to disk scales with the DIHCA, MAGMAR, and HIPPOS high-resolution programs. Panta Rei provides uniform observations of dense gas tracers (N2H+, H13CO+) and infall/outflow tracers (HCO+, HNC, SiO) bridging the scale gap between cloud surveys (SEDIGISM/OGHReS) and core observations (ALMAGAL/ALMA- IMF). This statistical sample spans all evolutionary stages and will answer: (1) Is dynamical decoupling universal? (2) How do mass inflows organize? (3) How do clump kinematics impact core formation? The analysis will yield insights into gas flows, evolutionary sequences, simulations, and star formation theory.